Collaborative Proposal: Quadratic Inverse Eigenvalue Problems for Model Updating in Science and Engineering: Theory and Computation

This project is devoted to the study of three inverse quadratic
eigenproblems with their pertinence to physical and engineering
applications. The aim is to develop theoretic understanding and
derive numerical algorithms for the quadratic model reconstruction
so that the inexactness and uncertainty inherent in the model due
to the limitation of current technologies are reduced while certain
specific mathematical conditions are satisfied. The most difficult
task in the quadratic model reconstruction is to satisfy the associated
constraints which could be inherited intrinsically from the physical
feasibility of a certain mechanical structure or could be driven
extrinsically by the desirable property of a certain design parameter.
The greatest challenge, which is also an imperative requirement in
practice, is that the reconstruction must be carried out using only
partial eigeninformation which are available by the state-of-the-art
computational techniques. The inverse problem of constrained model
reconstruction is essential for the understanding and management of
complex systems, yet many questions on the solvability, sensitivity,
and computation remain unanswered. The investigators have made
significant contributions to the quadratic model construction problems
individually and now intend to extend their investigation and join
expertise to these challenging inverse problems. This proposed work
therefore should be of compelling independent interest within both
the engineering and mathematical sciences communities.

In mathematical modelling, techniques of inverse problems that validate,
determine, or estimate the parameters of the system according to its
observed or expected behavior are critically important. This research
concentrates on the inverse model reconstruction problems with their
pertinence to physical and engineering applications. These problems have
been strongly motivitated by scietific and industrial applications,
including structural mechanics such as vibration control and stability
analysis of bridges, buildings and highways, vibro-acoustics such as
predictive coding of sound, biomedical signal and image processing,
time series forecasting, information technology, and others. Thus this
project will impact a wide variety of industries utilizing these
applications, including aerospace, automobile, manufacturing and
biomedical engineering. The greatest challenge facing these industries
is to manufacture increasingly improved products with limited engineering
and computing resources. A great deal of money and efforts have been spent
in these industries to satisactorily perform the model updating task.
However, the lack of proper theory and computational tools often force
these industries to solve their problems in an ad hoc fashion. An improved
analytical model that can be used with confidence for future designs is
an essential tool in achieving this obejective. The propsed research has
not only strong mathematical foundation but also significant matematical
modelling and experimental aspects using idustrial data which should be
instantly welcome by the industries. Furthermore, the students working
on this project for four years will receive a valuable interdisciplnary
training blending mathematics and scietific computing with various areas
of engineering and applied sciences. Such expertise is rare to find,
but there is an increasing demand both inacademia and industries.